International Collaboration in Chemistry: STM Investigation of the Self-Organization of Self-Assembled 2D and 3D Supramolecular Ensembles on Solid Surfaces

The Analytical and Surface Chemistry Program at NSF Division of Chemistry will support the international collaborative research project of Prof. Peter Stang of the University of Utah and Prof. Li-Jun Wan of the Chinese Academy of Sciences in Beijing, China. Profs. Stang and Wang and their students will synthesize and characterize surface-confined two and three dimensional self-assembled molecular architectures using advanced scanning tunneling microscopy (STM) to provide insights into and facilitate the "bottom up" nano-fabrication of novel molecular-based devices. Molecular-based devices, e.g. molecules that possess the ability to act as sensors, switches, motors, machines and memory components, when properly designed and controlled, constitute the backbone of the nascent nanotechnology that has the potential to revolutionize manufacturing and consumer goods in the 21st century.

This international collaborative research project is supported jointly by NSF and the National Natural Science Foundation of China (NSFC). The study is also supported by the Office of International Science and Engineering (OISE) at NSF.